SGER: From Gene Network to Geno-Mimetic Architecture

The goal of the SGER project is to develop new tools to understand the principles of gene network operation and to use these principles as the basis for a new kind of geno-mimetic network architecture. Gene networks display multiple (degenerate) ways of giving a common output. The project identifies what principles these degenerate networks have in common and incorporate such common principles into network and circuit architectures for non-biological computational devices.

The project constitutes a new approach to the question of whether there are common underlying principles to biological network operation. The project also presents the potential to introduce an entirely new class of network architecture based on the functional configurations of gene networks.